Computer Science Research Experiences for Undergraduates

9322249 Pitts The Center for Undergraduate Research in Virtual Systems Development at Trinity University provides a unique opportunity for outstanding young undergraduate scholars to participate in a research experience in the challenging and exciting area of Virtual Reality. South Texas is a high percentage minority area and major effort is being waged to recruit minorities into the participant pool. Five participants will be selected for the 1994 summer research experience and, subsequently, ten participants will be selected for each of the following summers (1995 and 1996). Seven Professors of the Computer Science Department provide the research mentorship for students in seven different state-of-the-art aspects of Virtual Reality. Each student selects a research aspect area and mentor from research presentations/demonstrations during the first week of the Summer Research Experience. After eight weeks of intensive research, each student should have an in-depth understanding of research methodology, simulated world development, 3-D graphics, object oriented graphic design, intelligent systems and, consequently, Virtual Reality. Most research will be conducted in the newly created Meadows Scientific Visualization Laboratory that contains twenty-two (22) H.P. 9000 networked high-end processors with enhanced graphics capability. Participants will be expected to submit their research experience to either the ACM Annual SIGSE Conference or the National Conference on Undergraduate Research. ***